Implementation and Analysis of Inference Techniques for Classical and Multiple-Valued Logics

This project continues a research program in logic. The studied areas of research stem directly from an analysis of the structure of formulas in negation normal form and from investigations into multiple-valued logics. The former work led to the development of the deduction rule called path dissolution. The study of continues, including the study of its properties as an inference mechanism and the development of a portable C++ implementation. For some time it has appeared that dissolution would be a useful tool in the design of prime implicant/implicate algorithms. A new negation normal form (NNF) algorithm, PI, has been developed that can be combined with dissolution for this purpose, and formula classes have been discovered that are hard for CNF/DNF-based methods but that are easy for PI/dissolution. A prototype system has been implemented and is being further developed. These techniques are being extended to multiple-valued logics (MVL's). The work in MVL's also includes the study of annotated logic programming and SLD-style proof procedures, and inference methods for fuzzy logics.